Investigation of Formation, Stability, and Structure of Quasicrystal and Related Crystalline Phases

This is grant is directed to experimental research on icosahedral phase formation and stability in selected alloys. Emphasized are (1) determination of the atomic structure of the bcc Ti-Cr-Si approximant from precision powder and single crystal X-ray diffraction studies; (2) expansion of the investigation into related phases discovered in the Ti-Zr transition metal alloys; (3) measurement of low and high temperature resistivity in bcc Ti-Cr-Si to compare with the transport properties already measured in Al crystalline approximants; (4) estimation of the glass-to- icosahedral phase and glass-to-alpha phase interfacial energies in Al-Mn-Si; (5) extension of an atomic model for Al-Mn to predict the structure of Al-Co-Cu. %%% Research on icosahedral phase structure and stability provides an important link to metallic glasses and complex intermetallic alloys. Understanding formation of these phases is required for improved metal alloy design.